Development of Electron Energy-Loss Spectroscopy

During the last ten years, electron energy-loss spectroscopy (EELS) has been combined with transmission electron microscopy to yield a method of chemical microanalysis which is capable of very high spatial resolution. Such methods are needed in the development of improved catalysts, the characterization of small particles in steel, and in studies ofthe distribution of calcium and other light elements in biological tissue. A simple and convenient quantitation procedure has been developed for EELS, but this procedure can give misleading results from some specimens, particularly if the regions analysed are crystalline. Purpose of this research is to develop an improved analysis routine and more accurate models for ionization cross sections. To achieve this aim, energy-loss spectroscopy on test samples of known thickness and composition will be carried out. As a result of these efforts, it is expected that EELS will come closer to fulfilling its potential as a microanalysis technique. EELS will also be used to investigate the radiation-induced loss of light elements from electron-irradiated areas; in particular, its dependence on specimen temperature and surface coating. With greater use being made on high-brightness electron sources and higher accelerating voltages, this mass-loss process is of increasing importance to any electron-beam microanalysis technique, including x-ray emission spectroscopy.